CPMSA: "Birmingham Comprehensive Partnership for Minority Student Achievement"

The primary goal of this five-year system-wide project is to double the number of minority graduates of Birmingham Public Schools (BPS) who are prepared to enter college as science, mathematics, engineering, and technology majors. To accomplish this goal, BPS has established a collaborative relationship involving the University of Alabama at Birmingham, the Birmingham Compact, and the Alabama Alliance for Minority Participation Program. Project activities will have an impact on all 43,000 BPS students in grades K-12 and their 976 teachers of science and mathematics. However, most academic enhancement activities will serve teachers in grades 6-12. To achieve the project goal, these objectives will be implemented: reform and enrich the K-12 science and mathematics curricula, using national standards in mathematics and science as guidelines; promote K-12 school-based leadership; enhance teachers' content knowledge and increase the use of effective instructional strategies in mathematics and science; provide students with a range of integrated enrichment activities; provide students with effective social support networks; implement a plan for effective use of school resources; and infuse appropriate technology into K- 12 instructional activities. Project processes and outcomes will be monitored through a comprehensive and integrated evaluation model. Formative feedback will be used to improve project functions throughout the duration of the grant. Project descriptions outcomes will be thoroughly documented and will be disseminated in various formats to a range of audiences. BPS, because of its unique history, demographics, and economic situation, offers a unique challenge for systemic reform. The success of this project may serve as a national model for other similar school systems. ***